REU Site: Democracy, Interdependence and World Politics Summer Research Program

Project Summary

In an increasingly interconnected world, study of the forces that shape state behavior and
interactions is increasingly essential. Building on previous success of this program since 2004,
the Democracy, Interdependence and World Politics Summer Research Program at Texas
Christian University in Fort Worth, Texas will be held in the summers of 2012 and 2013. Within
the overall project theme students devise and complete independent, mentored research
projects on issues with significant academic and popular value. Each year, 7 students will work
with faculty mentors to develop research projects, gather and analyze data and produce
scholarly papers reporting their findings. Activities include research methods seminars, intensive
project development workshops, presentations by guest scholars, community events, and
research under the guidance of project mentors with established records of research and
publication. Unlike most REU programs, the focus on international relations and independent,
faculty-mentored student projects, and extensive research training.

Intellectual Merit

Recent geo-political events and the global spread of democracy make studying democracy’s
consequences for world politics compelling. Key concerns include the ability of democracies to
formulate and sustain successful foreign policies, the prospects and implications of
democratization and democracy promotion, and the effect of democracy on violent conflict.
Because this project promotes undergraduate research into these timely areas of study, it builds
on growing areas of inquiry in world politics. High quality student research projects examine
critical factors impacting state behavior and interactions, and are disseminated publicly through
presentation at the annual International Studies Association meetings, with whom the program
will partner to ensure dissemination and impact for the projects. Moreover, student participants
are highly likely to go on to graduate study, for which they are substantially better prepared
because of the intensive training of the summer program.

Broader Impacts

This unique program expands national understanding of undergraduate education in Political
Science, which has limited examples of undergraduate student-faculty collaborative research.
Second, the program provides meaningful opportunities to students to engage in international
studies research and contribute research projects to the discipline’s discourse. Third, consistent
with NSF principles emphasizing the positive impact of mentored research on undergraduate
education, the program develops and enhances research skills and prepares students for
graduate study and other applications. Fourth, the program enables diverse students from
different regions and institutions of the country to challenge and support each other in a cohort.
Finally, by offering a competitive stipend, this project is accessible to students from middle and
lower economic strata as a summer employment opportunity that enriches their education.